Request for Funds for Research Scientists and Engineers from the Former Soviet Union to Attend the Wear of Materials Conference

0329611
Danyluk
Partial travel support is provided to a group of researchers and graduate students from the Former Soviet Union and other countries to attend the International Conference on Wear of Materials in Washington, D.C., March 31-April 4, 2003. The purpose is to facilitate communication of research and development of international collaborations.
***